Efficient Fine Grained Synchronization Support Using Full/Empty Tagged Shared Memory and Cache Coherency

Synchronization insures correctness of parallel execution by enforcing true data dependencies and timing constraints. In a parallel programming environment based on the shared-memory programming model, synchronization is provided either through explicit user-level coarse-grain synchronization primitives (such as locks and barriers) or implicitly synchronized data structures such as lock-able L-structures and write-once I-structures.

In this project we propose a new efficient way to support fine grained synchronization mechanisms
on multiprocessors. We propose to design a full/empty tagged memory hierarchy with aggressive hardware support for fine grained synchronization that is embedded in the cache coherency mechanism of an SMP or a NUMA multiprocessor, or a single-chip multiprocessor. We propose to handle synchronization faults in a similar way as cache misses in a lockup-free cache. We believe that handling synchronization and coherence together can provide a more efficient execution, reducing the occupancy in the memory controllers and the network bandwidth consumed by protocol messages. The performance benefits are primarily the result of allowing a dataflow style of computation in programming models, and maximizing the exposed parallelism by minimizing the possibility of false dependencies caused by coarse grained synchronization.